Travel Grant to 15th World Congress of the International Federation of Automatic Control (IFAC), Barcelona, Spain

The objective of proposal is to provide partial travel support for U.S. researchers to participate in the 15th IFAC World Congress. The conference will cover a wide range of topics relevant to theory and practice of systems and control. The IFAC Congress provides a spectrum of categories for technical presentations, including plenary lectures, survey papers, regular papers of both lecture and poster session types, panel discussions and case studies. There are 1796 technical papers in the program selected from 2511 submitted papers. The number of accepted papers from USA is 197 that constitute about 11% of the program. Topics include robotics, manufacturing, power systems, process control, measurement and sensing, identification, estimation, fault detection, and intelligent control.